CT-M: Computer System Vulnerabilities and the Efficacy of Defensive Mechanisms

Proposal Title: Collaborative Research; CT-M: Computer Systems Vulnerabilities
and the Efficacy of Defensive Mechanisms
Institution: University of California-San Diego
Abstract Date: 08/12/08
Longitudinal studies of network systems are very difficult to conduct when systems are
large, heterogeneous, highly interconnected, and open; yet, the importance of these
studies cannot be underestimated. This project focuses on an 18-month longitudinal
study on server-side vulnerabilities in the campus network of the University of California
at San Diego and on client-side vulnerabilities the University of California at Davis. The
issues concern the efficacy of security measures at the campus-wide networks and its
implication for security of networked systems at universities, government facilities, and
commercial enterprises.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0831132 PI Name:Marzullo, Keith
Printed from